U.S.Korea Cooperative Research on the Orientation of Ionomer/Dye Guest-Host Systems for Enhanced Optical Properties

IRI-9800696 Chen, Hsinchun <[email]> Meader, David, K. <[email]> University of Arizona $71,388 - 12 mos. (Jointly funded with the Information and Data Management Program - Total Award $91,388) An Intelligent CSCW Workbench: Personalized Analysis and Visualization This is the first year of a three-year continuing award. The goal of this research is to develop an intelligent workbench for Computer Supported Cooperative Work (CSCW), that will be used to explore research issues related to coordinated work. Promising information analysis and information visualization techniques are used to address such CSCW problem as: idea convergence difficulty, information overload, vocabulary difference, increased cognitive demand, and interface/display problems. Evaluation of the feasibility and effectiveness of these technological mixes is carefully performed in lab experiments. The results of this research will provide insights to designs for human-computer interaction and collaboration, with possible applications in groupware, digital libraries, and Internet searches. http://ai.bpa.arizona.edu